Biochemical-Genetic Studies of Convulsive Behavior in Mice

The purpose of this research is to study the neurochemical, physiological and genetic mechanisms of convulsive behavior in two different types of seizure prone mice: those susceptible to audiogenic seizures and those susceptible to spontaneous temporal lobe seizures. A great deal of knowledge is surfacing regarding seizures and we are now better able to put this knowledge into a theoretical framework. It is now possible to study seizures using genetic approaches. The information gleaned from the projects to be undertaken will have great bearing on how epileptic brain activity is researched in the future.